Acquisition of Scanning Electron Microscope for Multi-User Electron Microscopy Core Facility

The purpose of this proposal is to request funds for the purchase of a JEOL JSM-6340F Field Emission Scanning Electron Microscope with key optional capabilities including a field emission (FE) electron gun for increased resolution of sample analysis, and a backscattered electron detector for low voltage imaging and analysis of gold-labeled (3, 5, and 10 nm) surface antigens. This new JEOL JSM 6340F FESEM will serve 7 major and 13 minor users from seven different departments in interdisciplinary research and education efforts at the University of Missouri-Columbia (MU). The requested microscope will be housed in the Electron Microscopy Core Facility (EMCF) which is a recently reorganized centralized multi-user core facility that has as its mission to support research and education within the University community and in the region. It was established in 1995 as a result of combining the resources from the College of Agriculture, Food and Natural Resources, College of Arts and Science, College of Veterinary Medicine, and School of Medicine. The need for more modern capabilities has made it essential to ask for funds to purchase a new versatile, reliable, and user-friendly instrument, as the 20-year old JEOL-JSM35 scanning electron microscope cannot satisfy the demands of the present users. Additionally, because the EMCF serves a diversity of research projects and has as it's mission the training and education of future scientists, modern instrumentation is critically important. The new capabilities requested for this multi-user Core Facility will allow (1) high resolution analysis of minimally coated samples of biological plant and animal materials, and of molecular isolates and spreads; (2) high resolution detection of small gold labels down to 3 and 5nm gold-labeling for immuno-electron microscopy; (3) image acquisition and archiving for post-examination analyses; (4) use of the PC-based, fully digital microscope for training computer-age microscopists and resea rchers; (5) the ability to add a cryo-system; and (6) the ability to add enhanced x-ray microanalysis of minimally coated specimens from an EDS system that is planned for future purchase. These features have become essential for major parts of funded projects in agronomy, entomology, plant pathology, cell and molecular biology, veterinary parasitology, plant and animal reproduction, microbiology, and other basic sciences. The requested microscope will also serve to train users and students in a graduate-level Cell and Molecular Electron Microscopy course offered annually. The new microscope will be supervised by the EMCF director, who is assisted by two permanent staff EM technicians. The EMCF is one of six Core Facilities administered by MU's Molecular Biology Program, a state-funded program, that is committed to provide 50% of the capital costs, long-term salaries for the director and staff of the EMCF, and substantial subsidies for existing equipment as well as laboratory renovations and service contracts for all Core instruments.